Collaborative Research: RAPID: Strain accumulation and release at the Kuril subduction zone from postseismic observations on the Kuril GPS Array in 2007-2014

1352930
Mattioli

This Grant for Rapid Response Research (RAPID) supports UNAVCO, Inc. to assist efforts by Mikhail Kogan of Columbia University and Jeff Freymueller at the University of Alaska to observe postseismic deformation patterns following the May 24, 2013 Mw 8.3 earthquake at the Kuril subduction zone. This event struck the lower end of the Kuril-Kamchatka subduction zone, at a depth of >600 km. Continuous monitoring of the postseismic deformation caused by the earthquake will provide valuable data for the understanding of mantle rheologic properties and subduction processes of the Kuril-Kamchatka subduction zone.

***